GOALI: Advanced Weather Satellite Instrumentation

Proposal Number: ECS-9633015 Principal Investigator: Harold Broberg Title: GOALI: Advanced Weather Satellite Instrumentation In this research, a university-industrial collaborative project between Indiana University Purdue University Fort Wayne and ITT-Aerospace/Communications Division to investigate more accurate and reliable imaging (visible spectrum) and sounding (infrared spectrum) for next generation weather satellites is proposed. Adaptive control techniques will be investigated and modeled to improve the useable spectral bandwidth of infrared Michaelson interferometers infrared Michaelson interferometers are under consideration by the industry as the next logical step to improve the useable spectral bandwidth. Adaptive control to replace electromechanical control in the following areas are proposed for investigation: (1) adaptive control to improve imaging and sounding. This refers to control of the interferometer itself; (2) digital post-processing of spectra to replace complex electromechanical dynamic alignment techniques currently in use. This could results in a considerable weight savings which is important in space-based applications. Post processing to compensate for the mirror tilt is the main focus; (3) development of an adaptive filter of estimation method to accurately determine the position of the moving mirror and (4) basic research and development of microbolometric techniques for used in space-based systems. Currently available microbolometers are unusable for space-based applications due to slow response time, low efficiency and high self-heating.